Characterization of Asian Aerosol Particles During Aerosol Characterization Experiment (ACE)-Asia

This project supports the analysis and interpretation of single particle samples collected during ACE-Asia (Aerosol Characterization Experiment). Samples will be collected by James Anderson and collaborators (supported via ATM-002513). This project will focus on samples collected onboard the NOAA R/V Ron Brown. Analysis will be performed by scanning electron microscopy (SEM). Data interpretation will focus on questions of mineral aerosol composition, origin, transport, and chemical transformation processes.